Graduate Scholarships to Achieve Sustainable Infrastructure at the Water-Energy-Global Nexus

This project is providing need-based scholarships over four years to 18 graduate students (5-10 MS students and 4-8 PhD students) in the Civil and Environmental Engineering programs at the University of South Florida. The project is designed around the theme of sustainable water and transportation infrastructure. The project team includes teaching faculty members, each of whom has an active research program. A full-circle mentoring plan is being implemented between faculty and doctoral students, as well as between PhD students and MS students. Efforts are being made to recruit and retain a diverse cohort of graduate students (with and without first degrees in engineering) into advanced engineering programs and to prepare students to be globally competitive by promoting knowledge transfer between students and faculty that have different global perspectives while integrating the most appropriate knowledge, methodologies, techniques, and practices from both the developed and developing worlds.